Mathematical Sciences: Applications of Empirical Processes to Statistics

The theme of the research is the application of empirical process methodology to problems in statistics and econometrics. A multivariate location estimator to be studied, depends on the translate of a fixed disc that contains the largest empirical measure. The squared difference thus becomes the integral over two crescent-shaped regions. Several limit theorems will be proved, along with the graduate student Kim, to study the statistical properties of this estimator. The optimal center and the optimal radius of the disc in the estimator will be explored computationally. Different simulation methods will be studied for generation of the random functions used in the estimation. The major applications of the theory are in econometrics.